Exploring Thulium Ions for Quantum Applications

This program investigates extending the hardware of atom-based quantum computers to work based on species with complex electronic structure. The potential advantages of these newer atoms include more powerful quantum processors that are capable of outperforming classical supercomputers and smaller machines that perform calculations faster and with higher efficiency. The specific processing capabilities of quantum computers are highly relevant for securing national defense, and the spectroscopic knowledge and technical know-how gained will contribute to technical and scientific literacy.

More than half a century of development has been put into methods for working with trapped atomic ions, and these systems are now among our most powerful platforms for exploring precision measurement, quantum information processing, and atomic clocks. At the heart of nearly all of these experiments is a one-electron ion with a strong optical cycling transition. We are now well familiar with the limitations of these simple species, including their operating wavelengths and available internal complexity. This program seeks to take the first step beyond one- and two-electron ions to develop full, direct control of a polyvalent atomic ion with a dense spectrum of high multiplicity states. Preliminary work has shown that it should be possible to do this with singly-ionized thulium, development of which is the subject of this project.